Nonlinear Equations of Monge-Ampere Type

ABSTRACT

This mathematical research focuses on problems for nonlinear
equations of Monge-Ampere type and also for homogenization of
linear and nonlinear equations. For Monge-Ampere type equations,
the problems concentrate on the study of geometric properties of
their solutions and regularity. In particular, a question proposed
is to establish Holder regularity of derivatives of generalized
solutions for an equation that appears in geometric optics for the
synthesis of reflector antennas. The methodology that will be used
to solve this set of problems is using appropriate maximum
principles, localization and nonlinear variants of the
Calderon-Zygmund decomposition. Concerning homogenization, we
developed an abstract scheme that yields convergence in $L^p$
spaces of correctors for a large class of equations and
systems. We propose to investigate the validity of results of the
same nature for problems of homogenization in perforated domains.

This mathematical research is in the field of partial differential
equations, linear and nonlinear. These equations are the principal
classical tool of the applications of mathematics to the physical
world. The project has a strong connection with Harmonic Analysis
in Euclidean space, a subject that has flourished during the
second half of the twentieth century and that has become an
indispensable tool to provide qualitative and quantitative
information about the solutions of partial differential equations.
The problems proposed in the first part are motivated from the
engineering problem of construction of reflector antennas. The
second part of the project is related with the description of the
behavior of transmission of heat or electricity in materials with
periodic structure such us polymers, crystals and layered media.
In particular, we are interested in obtaining accurate
approximations of the solutions that describe these phenomena.